Integrating Computer-Based Experiments into the Economics Classroom

9451751 Delemesster A computer laboratory for economics has been established and is designed to strengthen the pedagogical effectiveness of teaching undergraduate economics. The experimental markets approach is used, and students gain a better understanding of economic behavior through interactive participation rather than only through passive learning. The use of economic experiments in instruction also enables students to experience the functioning of markets and to discover (or reinforce) the principles of economics in a laboratory setting. The computer lab consists of personal computers linked to a local area network. The networked system is necessary to run real-time experiments, such as a double-auction market, which requires shared information.